NSF INCLUDES: Supporting Women Advancing Through Technology

The University of California, Irvine will lead this Design and Development Launch Pilot to engage with collaborators from the Orange County CA STEM Initiative, the Orange County CA Department of Education, the Orange County CA Workforce Investment Board, the Jamboree Affordable Housing Communities, the Orangewood Foundation for Foster and Community Youth Services, OCTANE-Technology Incubator, Project Tomorrow and Growth Section. This project was created in response to the Inclusion across the Nation of Communities of Learners of Underrepresented Discoverers in Engineering and Science (NSF INCLUDES) program solicitation (NSF 16-544). The INCLUDES program is a comprehensive national initiative designed to enhance U.S. leadership in science, technology, engineering and mathematics (STEM) discoveries and innovations focused on NSF's commitment to diversity, inclusion, and broadening participation in these fields. The INCLUDES Design and Development Launch Pilots represent bold, innovative ways for solving a broadening participation challenge in STEM.
The full participation of all of America's STEM talent is critical to the advancement of science and engineering for national security, health and prosperity. Our nation is advancing knowledge and practices to address the computing technology education practices for recruiting, better educating, retaining and graduating a productive STEM workforce. However women who are members of underrepresented minority groups, with low socioeconomic status, historically underperform in STEM and specifically in computing technology. This project, NSF INCLUDES: Supporting Women Advancing Through Technology, has the potential to significantly advance a collaborative approach by a group of organizations to improve the success of poor, underrepresented minority women who are learning computing technology and transitioning to the STEM workforce.

The project will demonstrate the outcomes of computer science training for women, particular disenfranchised and underrepresented minority women that may be exiting foster youth services, living in low income housing, and/or having been denied access to programs particularly in technology due to their socioeconomic status. Partnering organizations will design, develop and launch a short-term, intensive training opportunity in computer science for women ages 16 to 34 who are unemployed or underemployed, and who desire to engage in upward career mobility. The program will include a replicable, custom curriculum and an educational approach that will be scalable. A boot camp will teach the fundamentals of Ruby on Rails, HTML, CSS, SQL, JavaScript, and AngularJS, and prepare participants for a career in web development while enabling them to keep their day jobs and have childcare provided. Educating a randomized sample treatment group of up to 150 women in this launch pilot, the partners will also offer internships and/or job shadows, where participants gain client experience, learn from more experienced developers, and continue to build their portfolios. All of the women in the program will receive information, coaching and exposure to college and career opportunities. Job placement in STEM careers is the outcome goal of this design and development launch pilot.